Mathematical Sciences: Combinatorics: Ultrafilters, Semigroups and Ramsey Theory

This award supports the research in Ramsey Theory of Professor Neil Hindman of Howard University. Dr. Hindman's research will center on investigations relating combinatorial partition theory and the theory of left-topological semigroups. This research falls in the broad category of Combinatorics, which is one of the most active fields in today's mathematics. Fundamentally, Combinatorics represents a systematization of the very first of all mathematical activities, counting. In its modern development, however, Combinatorics has gone beyond just counting to make use of a wide variety of advanced mathematical techniques, and although its roots go back several centuries, the field has had an explosive development in the past few decades because of its importance in communications and information technology.